Collaborative Research: Validation of Land Surface Hydrology Parameterizations for Climate Models

9318898 Lettenmaier This proposal is a collaborative effort between Dr. Ann-Henderson- Sellers (Macquarie University), Dr. Dennis P. Lettenmaier (University of Washington), and Dr. Eric F. Wood (Princeton University) The goal is to determine the relative performance of land surface hydrology representations in general circulation models (GCMs) used for climate simulation and numerical weather prediction in terms of their ability to characterize energy fluxes at the land surface and the surface water budget. The proposal has three primary objectives: 1) to evaluate the ability of selected landsurface hydrology models to reproduce measured surface energy and water fluxes using data from a range of spatial scales; 2) To determine how best to combine and extend surface observations, remote sensing, meteorological analyses to validate land surface parameterizations GCMs; 3) To evaluate the ability of selected land surface hydrology models used in GCMs to predict land surface fluxes of water and energy at the scale of global atmospheric models. A suite of models would be evaluated on a hierarchy of validation schemes. The models are 1) the variable infiltration capacity (VIC) model developed by Wood, Lettenmaier, and colleagues; 2) SECHIBA, the land surface model of the LMD (CNRS, Paris) GCM; 3) The ECMWF land surface parameterization; 4) a simplified version of SiB; and 5) BATS. The validation sites and data sets will be: 1) FIFE, a 225 Km2 region of native grassland in the central U.S., and 2) A portion of the Arkansas River basin which includes at least part of DOE's ARM (Atmospheric Radiation Monitoring) Southern Great Plains CART site. A major focus will be to use satellite remotely sensed measurements of land surface fluxes and surface measurements to obtain large-area validation data for evapotranspiration and surface soil moisture. ***